Celebrating 20th Century Pioneers in Atmospheric Sciences, Examining 21st Century Challenges and Opportunities; Washington D.C.; March 19-24, 2000

This award will support the 2-3 day assembly of students and professionals to celebrate the achievements of atmospheric scientist from traditionally underrepresented groups (primarily Hispanic Native and African Americans) in the atmospheric sciences during the 20th Century. This conference will be held at Howard University (in Washington, DC) during the week of March 19th, 2000. The conference has components that include: (1) a historical perspective of traditionally underrepresented groups in the atmospheric sciences. (2) A plenary session devoted to several outstanding atmospheric scientists/meteorologists who served as pioneers or as current role models. (3) Panel sessions addressing important themes. (4) A short but special afternoon session devoted to undergraduate and graduate students called "Free zone ". (5) A poster session with contributions from students and professionals. (6) A career fair with vendors from industry and professional schools for graduate students or professionals in the field of atmospheric sciences. (7) A banquet with a short awards ceremony will close out the workshop. This workshop will be announced in EOS, BAMS, on the Howard Web site and announcements will be sent to the meteorology departments We expect that this workshop will produce a volume summarizing the important contributions of the workshop that will be distributed to each participant, interested administrators and mangers at government labs, private industry and the university setting.